Mathematical Sciences: Complex Manifolds and Meromorphic Mappings

This project continues mathematical research centering on topics in the theory of several complex variables. The work involves studies of complex manifolds, representing the geometric point of view, together with analytic investigations into value distributions and continuity properties of complex functions. One primary focus concerns what is known as the Hartogs phenomenon whereby a holomorphic function of several variables defined in a region surrounding a domain (such as in a complex annulus) continues as a holomorphic function to the inner region. Work will be done in extending the idea in two directions. The first is to determine the extent to which a separate analyticity implies joint, while the second is concerned with the Hartogs phenomenon as it relates to mapping into complex manifolds. Although many manifolds reflect this property, some do not. The outstanding problem remains one of giving conditions on the target manifolds so that the extension property holds for all mappings into the manifold. Value distribution theory is concerned with the extent to which holomorphic functions defined in the space of several complex variables can omit or assume given values. The measurement of such affinities involves generalizations of the classical Nevanlinna theory which was developed for functions of a single variable during the first decades of this century. For nonconstant functions, their affinity for any value is almost always the same as for any other. The exceptions represent the deficiencies of the function - the measure of the set of deficiencies will be of primary concern during this investigation.